PALE Steering Committee, Data Coordination, and Community Radiocarbon Dating

Abstract ATM-9526384 Miller, Gifford University of Colorado Title: PALE Steering Committee, Data Coordination, and Community Radiocarbon Dating This award supports activities that are central to the success of Paleoclimates from Arctic Lakes and Estuaries (PALE), a project within the Arctic Systems Science (ARCSS) Program, but which are beyond the scope of individually funded research projects. The general contribution of PALE to the ARCSS program is the description of temporal and spatial variations in late Quaternary (150,000 years to present) Arctic climates are determined by multiple proxy indicators preserved in lacustrine and estuarine sediment records. These data, when coupled with paleoclimatic models, provide a fuller understanding of possible mechanisms and feedbacks that affect both circumarctic and regional high latitude climate changes. Such knowledge improves predictive capabilities for assessing possible environmental responses to future climatic fluctuations. This award will support the activities of the PALE Steering Committee for coordination among national and international scientific programs. A data coordinator is also supported as being vital to PALE as the major facilitator for compilation, storage, and exchange of data with other paleoclimatic programs. Support for radiocarbon analyses will ensure the high quality chronologies necessary to PALE.